Nonlinear Problems of Second-Gradient Elasticity for Multi-Phase Structures and Solids

Healey
DMS-1007830

The principal investigator and his colleagues study several
second-gradient problems of nonlinear elasticity, with
applications to multi-phase structures and solids -- especially
lipid bilayer vesicles, shape-memory alloys and thin structures.
A common thread running through these problems is the following
mathematical structure: a non-convex potential energy in the
first-gradient term and an additive second-gradient
regularization, often characterized by a small positive
parameter. The main goals of this work are: (1) to provide
classes of rational models -- particularly in the case of
two-phase lipid bilayer vesicles -- for understanding the often
exotic behavior of such structures under loadings; (2) to
systematically find their equilibria corresponding to local
minima of the total potential energy (meta-stable solutions); (3)
to obtain the existence of global energy minima as weak
equilibrium solutions of those models and study their structure
in the asymptotic limit as the small parameter approaches zero.
Goals (2) and (3) are inextricably linked to (1). We employ
rational continuum models, characterized by general constitutive
functions, and study thresholds of bifurcation and the structure
of global energy minimizers to compare with experiment. The
proposed work is highly interdisciplinary, requiring tools and
perspectives from several fields, e.g., nonlinear analysis and
partial differential equations, bifurcation theory, calculus of
variations, nonlinear continuum mechanics, computational methods,
symmetry ideas, biophysics, and materials science.

The project focuses on fundamental modeling and predictive
mathematical analysis for the quantitative characterization of
shape and deformation patterns of certain micron-scale structures
under applied loading, namely, lipid-bilayer membrane vesicles,
shape-memory alloys, and thin films. Each of these has direct
and important connections to basic science and technology -- in
particular, to problems associated with bio-molecular structures
and advanced materials. For example, lipid-bilayer membranes are
ubiquitous in bio-molecular systems; understanding and predicting
their mechanical behavior is crucial for understanding cell
function. The project focuses on understanding the behavior of
pure, man-made membranes or liposomes under changes in osmotic
pressure, temperature, or composition. The future promise of
liposome vesicles (closed membranes) as vehicles for drug
delivery demands a fundamental understanding of their multi-phase
mechanical behavior under loading. Likewise for phase
transitions in shape-memory alloys and wrinkling of thin films --
a fundamental understanding and mathematical prediction of their
behavior are important for characterizing the mechanical
properties of novel materials and for potential sensing and
actuation at the micron scale.